The Molecular Organization of Chlorophyll in Photosynthetic Membranes

The photosynthetic mechanism by which light energy is converted into chemical energy will only be fully understood after the molecular architecture of all the components involved in the process has been determined. Thus it is needed to know how each polypeptide functions, how it is folded, how cofactors are associated with it and how it is arranged with respect to other polypeptides and to the membrane. The goal of Dr. Thornber's research is to contribute to an understanding of the light energy trapping and its conversion into chemical energy during photosynthesis. The major interest is in those photosynthetic components that contain chlorophyll and carotenoid molecules. Recently he was able to isolate and partially characterize nine carotenoid- chlorophyll-protein complexes from higher plant thylakoids. For the first time it is now possible to purify these nine pigment-proteins without losing any chlorophyll or probably carotenoid, molecules that are present in the components in situ. Crystals have also been made of two of them. A thorough analysis of each complex will be made.